Parallel Algorithms for the Many-Body Problem in Physics

The many-body problem in quantum mechanics is known for its complexity. The multiconfiguration Hartree-Fock (MCHF) method developed for bound state atomic system performs well on systems that can be modeled as two-electron systems, but as the number or electrons increases the computational task rapidly becomes out of hand, and simplifying assumptions are introduced that decrease the level of accuracy in the prediction of properties. The approach in the future to the solution of such problems lies in the use of computer systems where many processors are working concurrently on a given problem. The use of such systems presents many problems - old programs cannot simply be transfered to such an environment. New methods and new approaches need to be developed. The long-range goal of this project is to develop parallel algorithms for atomic structure calculations for computer architectures of the future. The first step in this process is the revision of the numerical methods on which the MCHF calculations are based from finite difference approximations to the expansion of functions in terms of a spline basis. Symbol manipulation techniques will be explored to perform the exact evaluation of needed integrals. A TOOLPACK system will be used to assist in program transformations for different architectures.